Discovery Corps Postdoctoral Fellowship: Visualizing the Chemical Origins of Life for Research and Education

Janet Iwasa, Harvard University, is a Discovery Corps Postdoctoral Fellow for the 2006-2007 and 2007-2008 academic years. This fellowship will bridge between a Chemical Bonding Center (CBC) and the Boston Museum of Science by providing scientifically accurate, dynamic molecular visualizations. The audience for these visualizations spans from researchers to the general public. Iwasa's key goal will be to present chemical evolution in a clear and engaging way to the public.

This Discovery Corps Postdoctoral Fellowship is supported by the Division of Chemistry and the Office of Multidisciplinary Activities. The Discovery Corps Fellowship Program is a pilot program seeking new postdoctoral and professional development models that combine research expertise with professional service. Discovery Corps Fellows leverage their research expertise through projects that address areas of national need. Their projects enhance research capacity and infrastructure and contribute to workforce development and job creation. The Discovery Corps Program supports both Postdoctoral Fellows and Senior Fellows.